Research Experiences for Undergraduates at University of Iowa

Dr. Vicki H. Grassian and other members of the Chemistry Department of University of Iowa are being supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1993-5, ten undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects cover the traditional areas of chemistry-analytical, inorganic, organic, physical and biochemistry. A unique feature of this program is the focus on women and minority students.